International Collaboration on NIRT Grant: Electrodesposition of Nanostructured Multilayers

0231279
Podlaha

This award supports collaborative research between Drs. Elizabeth Podlaha and Wanjun Wang of Louisiana State University, Dr. Henrikas Cesiulis of Vilnius University in Lithuania, and Dr. Jinhui Lan of Tsinghua University in China, in connection with Drs. Podlaha and Wang's Nanoscale Science and Engineering NIRT grant (0210832) for development of novel electrodeposited nanostructured multilayered alloys for microelectromechanical systems (MEMS). The U.S. researchers will benefit from Dr. Cesiulis' expertise in the area of electrodeposition and from Dr. Lan's expertise in the area of sensor development.